Support for the Symposium on Architectures for Networking and Communications Systems

Support for the Symposium on Architectures for Networking and Communications Systems

Abstract

The award is to help defray the travel and living expenses of junior researchers to the Symposium on Architectures for Networking and Communication Systems (ANCS) to be held in Princeton, NJ in October, 2005. The conference will bring together traditional computer architects and networking system experts with the goal of articulating common challenges, and to facilitate the cross-transfer of domain-appropriate solutions.